Numerical Classification of Microstructures

9520173 Hellawell This research effort is directed towards improved capability for predicting the properties of manufactured items from the microstructure of the base material and the processing path that was used in production. To accomplish this it is necessary to describe the microstructure in quantitative terms; accordingly, image analysis systems and the interpretation of acquired microstructural information are examined to numerically describe microstructural assemblies. A majority of metal alloy microstructures, such as those derived from solidification and casting, are not easily described in terms of Euclidean geometry. For these cases fractal analysis can be employed to make numerical statements about the microstructure, however chaotic it may be. The feasibility of this approach has been shown for distributions of graphite in graphitic cast irons and should apply to many other complex microstructures which presently defy quantitative numerical assessment. The research involves model alloy systems and actual industrial products, starting with cast irons and aluminum-based engine castings. Ford Motor Company and General Motors Corporation view this research as an important area of pre-competitive technology and are providing significant contributions to the program. %%% While this program is academically stimulating, it has considerable industrial potential for predictive automation of manufacturing processes. ***